Applications of Real-Space Refinement for Macromolecular Structure Analysis

Computational methods will be developed for the determination, refinement and interpretation of macromolecular structures by X-ray crystallography and electron microscopy. Crystallographic structure determination involves the manual building of atomic model into an electron density map, using interactive computer programs, followed by automatic refinement of the model to the diffraction amplitudes. The crystallographic applications will bridge the transition between model building and automatic reciprocal-space refinement, a transition that is a bottle-neck and a common source of major errors in crystallographic structure determination. Using new techniques of restrained real-space refinement, the fit of the model to the electron density will be optimized before the phases are abandoned for conventional reciprocal-space refinement Such local refinement, in turn allows the phases and map to be improved, completing an iterative cycle for a new method of model improvement that is free from the feedback bias of omit-maps. Thus the new methods will have broad scientific impact since they will be built for computer platforms common to the structural biology laboratories. The new methods will increase the number of macromolecular structure determinations that can be completed, improve the quality, decrease the chance of errors, and decrease the resources that are required. Thus, this work will help further our understanding of the function of individual macromolecules, and of their interactions in the macromolecular assemblies that are central to many cellular processes. This award is supported by the Computational Biology Activity and the Biophysics programs.